Postdoctoral Fellowship: MSPRF: Twisted Gan-Gross-Prasad Conjecture

This award is made as part of the FY 2024 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Danielle Wang is “Twisted Gan-Gross-Prasad Conjecture”. The host institution for the fellowship is The University of California-Berkeley and the sponsoring scientist is Sug Woo Shin.